Large Area Electron Beam Etching of Microelectronic Films

Researchers will study and demonstrate large area electron beam assisted etching of theconventional insulators, semiconductors, and metals used in circuit fabrication. Large area electron beam etching of SiO2, Si3N4 polysilicon, and crystalline silicon will be explored. The films with various test patterns defined in single layer resist will be etched with an electron beam etching reactordesigned and built for this purpose. Etch rates will be measured usingellipsometry measurement of the film thickness in prematurely interrupted runs. Once end point detection techniques are developed for the electron beam plasma, they will also be used to determine etch rates. The etch profiles will be categorized with a profilometer and scanning electron microscopy. The electron beam etched structures will be categorized with respect to possible radiation damage using both high frequency capacitance voltage measurements and avalanche electron injection techniques. The effects of a post etching low temperature annel will also be studied.